Doctoral Student Career Development at the Workshop on the Algorithmic Foundations of Robotics (WAFR)

This grant will help support the travel costs for U.S. Ph.D. students to attend the International Workshop on Algorithmic Foundations of Robotics (WAFR). WAFR is a high-level, single-track, international workshop that brings roboticists and theoretical computer scientists together. The conference attracts an international crowd that includes academics, industry workers, entrepreneurs, and funding agency leaders. The meeting environment allows participants to exchange ideas, interact with leaders in the field, meet up-and-coming scientists, network, develop collaborations, and generate new ideas on the leading edge of robotic technology.